Compiler Optimizations to Exploit Simultaneous Multithreading

Recently introduced and forthcoming multithreading processor architectures
represent new challenges and opportunities for the compilation system.
This proposal will focus on three areas, exploiting features of a
simultaneous multithreading (SMT) processor:

1. Generating Task Threads and Helper Threads - Task-based parallelism
provides heterogeneous parallelism that is particularly effective for an
SMT processor. Helper threads assist and accelerate the execution of other
threads, without necessarily offloading any computation.

2. Simultaneous Compilation - Using spare contexts to do dynamic
compilation, optimization, and profiling provides the opportunity to
perform these functions concurrent with the running program, and
continuously, without interrupting other threads.

3. Program Placement for SMT - Efficiently using the memory hierarchy is
more difficult on an SMT processor because programs interact in
non-deterministic ways. Novel code, data, and page placement compiler
algorithms will reduce cache misses for multithreaded workloads.

This research will involve grad and undergrad students, including students
from underrepresented groups, training them in research methodology and
practice, and developing particular research expertise. This research will
create a compiler and simulation infrastructure that will be made available
widely to other academic institutions. This should most benefit
institutions that lack resources to develop such an infrastructure themselves.